Collaborative on Oceanographic Chemical Analysis (COCA)

The project will support a science workshop at the University of Hawaii in 2013 that will bring together members of the analytical chemistry community and chemical oceanography community. The goal of the workshop is to foster collaboration between these two disciplines and thereby advance the application of novel analytical chemistry techniques to the field of chemical oceanography. The proponents are leaders in their respective fields and have identified an important and growing gap in the field of chemical oceanography; namely, the need to develop the next generation of chemical oceanographers that are skilled in the trace analytical chemistry of seawater. The proposed workshop will bring together a broad range of expertise in the application of analytical chemistry to marine environmental problems, which has important broader implications in regards to developing future marine chemical sensors and observing systems.